Behavior of Soil Nailed Walls during the 17 October 1989 Loma Prieta Earthquake

This research program is part of the initiative to collect perishable data resulting from the 17 October 1989 Northern California (Loma Prieta) earthquake. The objective is to obtain data on the performance of five soil nailed walls in the San Francisco Bay area during the Loma Prieta earthquake. This perishable data will be compared at a later time with the pre- earthquake measurements on the same walls, in order to evaluate the performance of soil nailed walls under seismic conditions. Soil nailing is a construction procedure used to shore vertical soil cuts for temporary or permanent purposes. Related procedures included conventional soldier pile and tie- back systems. Because of the uncertainties involved with the design of soil nailed walls, building officials have expressed concern regarding soil nailing (Engineering News Record, October 5, 1898). As a result, Professor Felio was appointed Chairman of the American Society of Civil Engineers-Los Angeles Section Task Committee on Soil Nailing in order to establish design, construction, and monitoring guidelines for the City of Los Angeles. This committee has been collecting information on the subject as well as contacting researchers, constructors, and designers in the United States for information. The survey is being supervised by Professor Felio and Mr. Pirooz Barar of Pirooz Barar and Associates, San Francisco, a soil nailing designer in California with experience in supervising the construction of soil nailed walls in San Francisco, Oakland, and the Los Angeles area.